Research in High Energy Physics: Theory and Phenomenology of Supersymmetry

Research in theoretical elementary particle physics will include studies of supersymmetry and other new theories of particle interactions. Supersymmetry is a promising idea which predicts the existence of many new heavy subatomic particles. The properties of these particles, including their masses and decay rates, will be studied under a variety of different theoretical assumptions. The resulting predictions are important because they will affect the planning and analysis of many present and future experiments that search for new particles. These studies are also of central importance for understanding the behavior of physics involving very high energies.